Conventional and Laser Spectroscopy of Atoms and Molecules

*** 9601638 Tate This grant will provide partial funding for the equipment for an undergraduate atomic, molecular, and optical physics research and teaching laboratory at Colby College. This laboratory will provide students with experience in high resolution spectroscopy, both conventional and laser. The laboratory will be used both for instruction in various courses and in senior level independent research. In addition, it will enhance the research of faculty members. ***